Adaptive Optics Imaging of Binary Stars

ABSTRACT McAlister, Harold AST-9421259 Support is being provided to carry out a program of high spatial resolution studies of selected groups of binary stars using the adaptive optics system of the 1.%m telescope at the U.S. Air Force Starfire Optical Range located on Kirtland Air Force Base near Albuquerque, New Mexico. The unique capabilities of the Starfire adaptive optics system provide the opportunity for directly imaging binaries with angular separations as small as 0.1 arcsecond. This will permit the accurate measurement of differential magnitudes and colors for hundreds of binary stars in a regime of angular separation never before available to such studies. * * *